An International Workshop on the Methodology of Incorporating Adaption into Assessments of the Impact of Global Climate Change: Pittsburgh, PA; Fall 1998

Abstract ATM-9813490 Yohe, Gary W. Wesleyan University Title: An International Workshop on the Methodology of Incorporating Adaption into Assessments of the Impact of Global Climate Change: Pittsburgh, PA; Fall 1998 The proposal requests the National Science Foundation support for a three or four day international workshop designed to further our ability to assess the impact of climate change across the globe when adaption is based on limited information and constrained by local political, cultural, social and economic structures. The proposed workshop will focus on sea level rise and coastal management, but it will be conducted with an eye toward producing generalizable insights that can both support the inception of coastal studies for Egypt and the Indian subcontinent and offers researchers in other sectors some guidance in creating fruitful methods of analysis. The workshop should produce significant results in two distinct directions. First, collaboration of active researchers will allow the principal investigators to work with others to contribute a methodologically focused paper to the literature that will inform not only the next generation of coastal analyses extended beyond developed market economies, but also (and more importantly) the broader IPCC interest in working adaption throughout the contributions of Working Group II to the Third Assessment Report. The workshop will also build understanding of the differences between the various models that have developed specially to examine the impact of sea level rise. It is expected that differences will be found along both natural and social dimensions; and a paper that explores their resources and consequences should feel well into the IPCC TAR process. The comparative and development work will, in addition, provide insight into (1) representing sea level rise more appropriately into sufficiently desegregated integrated assessment models and (2) including impacts more broadly defined in the g rowing list of "vulnerability assessments."